Summer School on Complex Systems; Santa Fe, New Mexico; June 5-30, 1989

A group of institutes, centers, and universities throughout the country will sponsor a summer school in Santa Fe, New Mexico during the four-week period June 5-30, 1989. The goal of the summer school is to provide graduate students and postdoctoral fellows with an introduction to the study of "complex" behavior in mathematical, physical, and living systems. The emphasis of the school will be on developing techniques for measuring and analyzing complex behavior, and applying these techniques to the study of specific systems. Subjects to be covered include nonlinear dynamics, computational and algorithmic complexity, disordered systems, neural nets and computational neurobiology, chemical oscillators, lattice gases, pattern formulation in biological systems, and design of parallel-processing algorithms. The four-week school will consist of approximately nine short courses together with seminars, computer workshops, and experimental labs supplementing the lectures. The first three weeks will be organized around formal lectures, and the final "Research Week" will be devoted primarily to research on projects suggested by the lecturers. The material presented at the school is intended to be accessible to advanced students with graduate-level training in the mathematical, physical, biological, or information sciences and a strong mathematical background.